Infinite Dimensional Teichmuller Spaces and Conformal Geometry

Proposal Number: DMS-0200733
PI: Nikola Lakic

ABSTRACT

Vector fields defined on closed sets in the plane have
recently found several new applications in various branches
of mathematics and other natural sciences. The definition
of the norm of these vector fields depends on which
application the fields are used for. One norm comes from
looking at vector fields as tangent vectors to the
Teichmuller space of the given closed set. This norm,
called the Teichmuller norm, is suitable for applications
in holomorphic motions and complex dynamics. It turns the
space of vector fields into a space of all initial
velocities of holomorphic motions of the closed set. Since
the holomorphic motions of the fixed closed set are defined
by an intrinsic condition on the closed set, it is natural
that there is a criterion that guarantees that the vector
field has bounded norm, and which is expressed purely in
terms of the values of the vector field on the closed set.
Such a criterion was found recently by considering the
velocity of the cross ratio for every possible quadruple
in the given closed set. The velocity is measured with
respect to the Poincare density of the Riemann sphere
punctured at three points. This leads to an alternative
norm on vector fields, called the cross ratio norm. The
cross ratio norm is equivalent to the Teichmuller norm,
and the equivalence constant is universal and independent
of the closed set or vector field. Hence, a vector field
is a derivative of some holomorphic motion if, and only if,
it has bounded cross ratio norm. This equivalence led to
the introduction of a new canonical density on any Riemann
surface. The new density is equivalent to Poincare density,
and this equivalence has several important applications of
the vector field theory to hyperbolic and conformal geometry.
It provides a link between, on the one hand, hyperbolic
geometry, Riemann surfaces, and geometric function theory,
and on the other hand, Teichmuller theory, quadratic
differentials and h olomorphic motions with their
applications to complex dynamics.

For many years the analytical and geometrical techniques
developed in dynamical systems and Teichmuller theory have
been applied to a number of important nonlinear problems
with broad impact on ecology, economics, and genetics. One
can expect these trends to continue. This project will
feature the applications of the finite earthquake theorem
to various directions. This, recently stated and proved,
theorem provides a way to code each finite or countable
string of data into the weighted tree associated to a
finite lamination and vice versa. That could turn out to
be an efficient way of coding. The applications will be
based on recently made program in Maple that sketches the
graph of finite laminations corresponding to a given
homeomorphism and lists weights associated to each leaf of
those laminations. The third component of the project is
based on integrating research and education.